Track II, Down to Earth Science

This proposal describes a Track 2 program that involves collaborations between ASU, two Native American tribes, and four inner city or suburban schools. The Track 1 program impacted 38 ASU fellows, 28 veteran teachers, and 38 public schools. The first grant focused on middle and high school earth system science, biology, and related social science courses (notably geography) in six school districts in Arizona with high concentrations of underrepresented populations. The previous program developed an interdisciplinary 3-credit course on inquiry science for Fellows, innovative in its approach to building Fellows' abilities to collaborate to improve their teaching skills and action research strategies. Track 2 is a continuation of this program and attempts to build upon the success and knowledge gleaned through the original proposal.